SGER: Acetylcholine Receptor: Model Antagonist Complex

Dr. Low will attempt to map out the portion of the cholinergic receptor molecule which binds to a toxin. The technique involves forming covalent bonds between the toxin and identified peptide sequences of the receptors, using a photoreactive group inserted in the peptides. This approach is new and if successful, can be used to probe the properties of other receptor molecules.